Planning Grant for Enhancing SMET Teaching and Learning

Dillard University will develop a strategic plan to guide the systemic reform of its science, technology, engineering and mathematics (STEM) curriculum with the goal of preparing students for entry and success into the STEM workforce. Achievement of this goal will result in increased numbers of African-American students pursing advanced degrees, obtaining doctoral degrees, and entering the workforce and professoriate in STEM fields. Impacted disciplines include biology, chemistry, computer science, mathematics, physics, and pre-engineering.

The proposed systemic reform plan includes the following objectives:
- Strengths Weaknesses Opportunities and Threats (SWOT) analysis of STEM programs, curricula, instruction, and research practices at Dillard University;
- SWOT analysis of current and potential university partnerships and programs for student and faculty research collaborations;
- SWOT analysis of current intervention and outreach programs that impact STEM educational programs;
- Development of an implementation plan for the systemic reform of the STEM instructional and research enterprise at Dillard University.